A Confocal Microscope and Imaging System for Biological Investigation

Ten biologists from the Departments of Zoology and Psychology of the University of Maryland, College Park are requesting funds to purchase a laser-scanning confocal microscope and image analysis workstation to support and enhance their research. Drs. Mount, Payne, Popper and Rivas will be the primary users of the instrument. Within our multidisciplinary group, the uses of confocal microscopy include investigations of neuronal polarity in cerebellar granule neurons (Dr. Rivas, Co-PI on this grant), regeneration of sensory hair cells in the ear (Drs. Dooling and Popper), the role of calcium ions in phototransduction (Dr. Payne), the development of central auditory projections in the CNS (Drs. Brauth, Carr, and Hall), how the correct processing of RNA from protein-coding genes is specified in higher organisms (Dr. Mount), homology of invertebrate auditory neurons (Yager), and investigations of stream meiofauna (Dr. Palmer). These laboratories have a large number of postdoctoral, graduate and advanced undergraduate students who will use the confocal microscope during their research training. We are requesting a Bio-Rad MRC 1024 confocal imaging system coupled to a Nikon 300 inverted epi-fluorescence microscope, and a Silicon Graphics "Indy." image analysis workstation for quantitative image analysis and three-dimensional image reconstruction. The confocal system will include a krypton-argon laser (with emission lines at 488, 568, and 647 nm), triple dichroic beamsplitter, four detection channels (three PMT-based detector channels and one detector for transmitted light), and high resolution 24-bit acquisition software. This system will allow us to image up to three separate fluorescent channels for multi-label applications. An inverted configuration with DIC optics is needed so that the epi-fluorescence Nikon microscope can be used for cell cultures, and to provide ample access for micromanipulation, as is required by several of our users. Confocal micr oscopy will significantly enhance the research programs of each of the core investigators, and will allow them to pursue areas of research that have heretofore been extremely difficult or impossible to examine with conventional microscopy. In contrast to conventional fluorescence microscopy, in confocal microscopy out-of-focus structures do not contribute to background because they receive little or no illumination, and any fluorescent signal produced by them is rejected by the instrument. Unlike conventional microscopy, where one must physically cut a thick tissue into extremely thin sections for imaging, the extremely shallow depth-of-field of confocal microscopy allows the optical sectioning of either intact cells or thick specimens (such as embryos or brain slices). Optical sections taken at successive focal planes can be re-combined using computer-generated techniques to produce a highly informative three-dimensional reconstruction of an entire tissue or cellular structure. These characteristics make this technique essential for our multi-disciplinary studies, all of which require optical sectioning through thick biological specimens with elimination of out-of-focus fluorescence. Each of the investigators in this proposal will use the optical sectioning and quantitative capabilities of the confocal imaging system. For example, Dr. Rivas will use the confocal to study the development of fluorescently-labeled neurons that were implanted into the brain. Using conventional fluorescence microscopy, out-of-focus fluorescence from thousands of implanted neurons masks the structure of any particular cell. Indeed, individual neurons extend through many focal planes, allowing sharp focusing only on particular portions of the cell. Drs. Brauth, Carr, Dooling, Hall, Popper, and Yager face similar methodological problems as they attempt to study the complex structure of neurons in the auditory nervous system. Dr. Mount will use the confocal to make optical sections th rough thick Drosophila embryos, and Dr. Palmer will use the confocal to section through invertebrate whole mounts. Dr. Payne will extend our use of the confocal into the area of neuronal cell physiology. Dr. Payne will investigate a localized light-induced elevation of intracellular calcium that is co-incident with the electrical response of photoreceptors to light. Drs. Rivas and Yager will also use the confocal for live neuronal imaging, using the optical sectioning capabilities of the confocal to image fluorescently-labeled neurons in thick brain slices or embryos. Thus, in each area of our research, the confocal will greatly improve our ability to study correlated structure and function.